NGS:Collaborative Proposal:Structural and Composable Performance Simulation of Complex Systems

The most prevalent modeling methodology for computational systems employed today,
hand-writing monolithic simulators in sequential programming languages, yields simulators that are
difficult to retarget or integrate with one another. The proposed solution, the Liberty Simulation Environment (LSE), automatically constructs simulators
from machine descriptions that closely resemble the structure of hardware. This structural resemblance
to the hardware provides confidence in the model and frees systems researchers to think about systems, not
simulator coding concerns. LSE's strict but general component communication contract enables the creation
of highly reusable component libraries and eases the task of rapidly exploring ever more exotic designs. LSE
components and descriptions can be hierarchically composed of other components and can exist at any level
of abstraction (statistical to gate-level). This choice of abstraction level combined with partial specification
support allow models to be iteratively refined; descriptions generate fully functional simulators from the
very start, allowing users to specify and validate precise models incrementally. Through observing current
and future users of LSE, we will continually refine the framework to arrive at the most effective design of
these features in practice.